Modernization of Introductory Physics Laboratories at SUNY Stony Brook

This award is made as part of the Instrumentation and Laboratory Improvement program. This program funds innovative new projects for undergraduate physics laboratories. The Principal Investigator of this project is Dr. Graf of SUNY at Stony Brook.